SBIR Phase II: Chip Slotted Spread ALOHA

This Small Business Innovation Research (SBIR) Phase II project will upgrade an experimental laboratory Spread ALOHA Multiple Access (SAMA) data network by adding the capability of chip slotted operation. Slotting is a general technique used in conventional ALOHA channels with the capability of doubling the packet throughput of these channels. Slotting has a similar capability in Spread ALOHA channels; however, slotting has two additional advantages in Spread ALOHA channels. First, slotting can greatly reduce the latency of the channel by decreasing the retransmission delay of the channel. Second, slotting permits the introduction of more flexible embedded reservation protocols in the SAMA channel. The benefits of a chip slotted SAMA network will be a major simplification in the implementation of wideband connection-free multiple access channels, while at the same time increasing the throughput and performance of these channels.
Research will lead to enhancements and upgrades for the Spread ALOHA-based SkyDSL (where DSL essentially stands for Asynchronous Digital Subscriber Loop) satellite internet access system. It will also lead to a broadening of commercial markets to include cellular and Personal Communication System (PCS) and Local Multipoint Distribution Service (LMDS).